Oceanographic Instrumentation

93-21500 The PI requests funding to purchase shipboard instrumentation in support of NSF-funded research. The instruments will be used aboard the R/V BLUEFIN, a 72 foot vessel, which is owned and operated by the Institute. Instrumentation requested includes a digital field fluorometer for continuous underway measurements. The instrumentation requested is required for support of NSF-funded cruises aboard the BLUEFIN during 1994 and will enhance the scientific capability of the vessel in the future.